U.S.-France Cooperative Research: The Representation Theory of P-adic Groups

9314473 Kutzko This three-year award supports U.S.-France cooperative research in algebra and number theory between Philip C. Kutzko, University of Iowa, and Guy Henniart, University of Paris, Orsay. The investigators will study a number of problems related to representation theory of p-adic groups and applications to Langlands' program. The Langlands' picture theorizes that fundamental objects of arithmetic (elliptic curves) are connected with fundamental objects in representation theory (classical modular forms). The U.S.investigator brings to this collaboration expertise in the representation theory of p-adic groups. This is complemented by the French investigators renown expertise in local Langlands conjecture. This project will advance our understanding of representation theory and will serve as a basis for future advances in number theory and arithmetical algebraic geometry. ***